CISE Research Instrumentation: Collaborative Research and Design Laboratory

A special configuration of high performance workstations will be acquired with peripheral equipment and supporting software in order to enhance collaborative problem solving environments. The selected projects to which this equipment shall be dedicated include. * Extension of small group R&D environments. * Universal C programming environments. * CAD for high performance reconfigurable VLSI systems. * High-level factory modeling and simulation system.